Supervisory Control of Second Order Distributed Parameter Systems: Integrating Robust Actuator Placement and Actuator Switching

--------------- Abstract (100 words)------------------------------

The development of supervisory control and actuator allocation in
flexible structures is proposed and the research objectives are
to: (1) provide a theoretical framework for the supervision and
switching of actuators and controllers in flexible structures,
(2) develop and implement efficient computational schemes,
(3) verify experimentally the theoretical results and the
computational predictions on a flexible plate. These would naturally
complement the educational objectives which are to: (1) integrate
control and system identification techniques in vibrations and
mechatronics curricula, (2) design laboratory experiments to enhance
undergraduate courses using the controls lab, (3) promote a hands-on
approach to teaching controls from a multidisciplinary point of view.